The St. Olaf Conference, October 20-22, l989

Mathematicians experienced in using computer algebra systems in teaching calculus are meeting to discuss their past experience and their plans for future use. The focus is on how these systems have changed, can change, and will change the teaching of calculus.